Development of a Wideband Burst Mode Data Recorder for Radio Astronomy

AST-0705062/Whitney

This project will develop a wideband burst-mode data recorder for Very Long Baseline Interferometry that will increase effective recorded burst bandwidths over present systems by factors exceeding 16. The Very Long Baseline Interferometry arrays enabled by this work will significantly enhance the ability of the astronomy community to carry out observations in several key science areas.